Research Experiences for Undergraduates in Physics

9424158 Wang The Research Experiences for Undergraduates Site" in the Physics Department of Rensselaer Polytechnic Institute will be continued. This Department has arranged a fine program for the undergraduate participants, which allows them to contribute consequentially to a number of research programs. ***